RIA: Performance Analysis of Wormhole-Routed Interprocessor Communication Networks

The second generation of interprocessor communication networks for multicomputers, the wormhole-routed network, is currently in production. Initial experience indicates that long communication paths are no longer a problem with these machines. However, resources such as network channels are reserved for communication, and the resulting contention can degrade performance. Our tests on a production machine indicate that the problem becomes more severe as the number of nodes increases. We are interested in the effect of this contention on the programmer. Clearly, the old technique of mapping problems onto multicomputers using distance as a metric no longer applies. The research is on the development of new metrics that consider contention. We propose a metric which has been shown to be effective for static mapping of homogeneous tasks. We are investigating an improved metric which can handle inhomogeneous tasks. Our ultimate goal is a metric which can be useful for both static and dynamic mappings. In order to handle the latter case, a metric must be simple enough to be calculated, or recalculated, quickly. Our metric fits that requirement. We also develop load balancing techniques using our metric for computational physics problems. Applying our techniques to real problems on real machines ensure that our research is useful to the computing community.